Periodic and quasiperiodic patterns with growth

Quasi-periodic patterns arise in a variety of natural and experimental systems, including chemical reactions, fluids, soft matter polymers, and solid-state crystalline materials. Due to their unexpected experimental discovery and novel physical properties, they have been the focus of much study in the material sciences and show great potential in a variety of engineering applications, including self-assembled nano-structured materials and membranes, photonic materials, as well as adaptive or programmable functionalized materials. This project advances the mathematical and computational understanding of quasi-periodic and quasi-crystalline patterns in prototypical partial differential equation models. It will describe how processes such as growth, quenching, and heterogeneity can be used to harness, fabricate, and manufacture such structures. In tandem, this project will perform educational outreach which promotes interest in mathematics and its usefulness for industry and science, and establish a research training program which provides experience, opportunities, and mentoring at the undergraduate level, as well as in-depth training at the graduate level.

Quasi-periodic patterns possess spatial symmetry and local order, with spectral modes lying on a discrete lattice, but do not possess full translation symmetry and are not periodic. While there has been significant amount of work to understand abstract quasicrystalline geometry from both mathematical and chemical standpoints, little has been done to understand the dynamical formation of these structures in relevant mathematical models, with most studies using direct numerical simulation and non-rigorous approximation. This project will develop new mathematical and numerical continuation techniques to characterize coherent structures, including fronts, defects, and localized pulsatile solutions, which involve quasipatterns. Further, it will describe how spatio-temporal growth processes and heterogeneities can affect and moderate their formation. It first will develop functional analytic and spatial dynamics tools for simplified and prototype systems. These include quenching and domain wall formation in hexagonal and rhombic crystalline phases as well as fronts involving aperiodic solutions in one-spatial dimension. Next, it will seek to expand these techniques to fully two- and three-dimensional quasi-periodic structures in prototypical partial differential equation models as well as more realistic models such as phase-field and density functional systems.